Preservation of Nelson Bay Cave

In 1970 the NSF provided funds to Dr. Richard Klein for an archaeological excavation at Nelson Bay Cave. Work at this South African site revealed a series of stratified deposits which spanned the Upper Pleistocene (Ice Age) and continued into the post-glacial period. Dr. Klein uncovered a series of archaeological industries associated with abundant faunal remains and established a developmental sequence for this coastal region. It was during this period that modern humans appeared, and thus, these data are of considerable archaeological significance. When excavation was completed, the site was fenced and investigators mistakenly believed that this barrier would protect the remaining deposits. Unfortunately, this has not happened and undisturbed sediments are slumping into the hole. Funds provided by this grant will permit Dr. Klein to fill the excavation, and thus, protect the intact deposits. As technology advances, archaeologists often return to excavate additional portions of partially dug sites to recover new classes of information. Thus, only under the most exceptional circumstances are entire sites excavated and areas are preserved for future research. In this context, it is important to prevent the further deterioration at Nelson Bay Cave. Since NSF was responsible for the initial excavation, it is eminently reasonable for it to provide preservation funds.